WORKSHOP: Yosemite Workshop on Multiscale and Multiresolution Methods 10/29-11/01/2000, Yosemite Lodge, Yosemite National Park

This award supports a three day symposium devoted to the topic of multiscale and multiresolution methods in computational science. Arguably, multiscale and multiresolution methods represent the most important tool in obtaining asymptotic scalability of large scale computations and data manipulation. Although a well-known paradigm of computation, recent developments in the general area of multiscale computation such as, multiscale finite element methods as well as new developments in the area of specialized multiresolution representations such as curvelets and ridgelets have suggested important new application areas for these techniques which will be highlighted by speakers at the symposium. Since multiscale and multiresolution techniques are just beginning to penetrate diverse areas of scientific computing such as molecular dynamics and scientific visualization, one goal of the symposium is to bring together as many differing perspectives on the subject as possible with the goal and expectation of inspiring new avenues of research and application.